National Dissemination of Calculus Reform in High Schools by the Oregon State University Calculus Curriculum Project

This three-year project aims at preparing high school mathematics teachers nationwide to integrate the use of graphing calculators and symbolic manipulation software into their teaching of calculus. At the same time, the project also serves to disseminate instructional materials that integrate the use of such technology into the teaching of calculus (Oregon State University Calculus Project). Participating teachers will attend intensive two-week summer workshops offered at several sites around the country. During the following academic year these teachers will implement the new calculus program in their respective schools. In this endeavor, they will be supported by a variety of communication networks (including electronic ones), as well as periodic two-day regional follow-up meetings. The cognitive and affective factors involved in learning and teaching calculus with technology will be studied. The evaluation component will focus on student and teacher outcomes, with special emphasis on student participation and performance in subsequent college mathematics courses. A "leadership" component of the program will provide special training to 25 teachers aimed at preparing them to initiate in-service efforts around the country that involve calculus and technology. The percentage of matching funds is 67%